SGER: Elementary Mathematics Lab

The Institute for Advanced Study is developing more fully the exploratory research program at the Elementary Mathematics Laboratory (EML) at the Park City Mathematics Institute and diversifing the group of participants to include more research mathematicians and a broader range of teachers and mathematics educators. The EML is centered on an observed, ten-day summer school course for about 20 fifth-grade students from Park City (Utah) Schools. The EML provides these students with a mathematically rigorous summer school experience while offering mathematicians, researchers and educators an opportunity to test and refine theoretical ideas about mathematics education of children.